A Systematic Approach Towards Robust and Efficient Coherent Control Based on Multiphoton Intrapulse Interference

In this award, funded by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. Marcos Dantus of Michigan State University and his postodoctoral, graduate and undergraduate research students will further investigate the use of multiphoton intrapulse interference (MII) as a means of achieving coherent control of molecular dynamics. In particular, Prof. Dantus and his group will develop phase-shaping methods to allow them to prepare gas-phase molecules in predissociative states and to obtain chemically-selective, microscopic images in biological materials.

Besides the broad impact of the research on other areas of science, Prof. Dantus will continue to provide undergraduate and graduate students with the training that will allow them to continue in careers in science and technology. In addition, Prof. Dantus and his group will continue in their efforts to develop commercially useful technology.